Instrumental Methods in Student Research Projects in Geology

The analytical component of the geology program at Dickinson College is being enhanced significantly through the acquisition of an Energy Dispersive X-ray Fluorescence Spectrophotometer and the upgrading of an X-ray Diffraction System. With these instruments, which complement analytical instruments already on hand, student research projects are being conducted at three interrelated levels: 1) Introductory required courses (Mineralogy, Petrology, etc.), 2) Intermediate elective courses (Geochemistry, Economic Geology, etc.), and 3) Independent Study and Research. Each level acts as a basis for the next by incorporating the theory, operation and limitations of instrumental methods into a series of increasingly complex geologic problems.